Acquisition of a High-Throughput DNA Sequencer: A Critical Component of the University of Miami Marine Genomics Initiative

0201438
Findley
This award to University of Miami's Rosenstiel School of Marine and Atmospheric Sciences provides instrumentation to improve the shared-use scientific instrumentation available to researchers using three research ships operated by University of Miami and the Harbor Branch Oceanographic Institution. These three vessels, R/Vs Seward Johnson, Seward Johnson II, and Walton Smith, are all operated as part of the University-National Oceanographic Laboratory System research fleet. The specific instrumentation supported by this award includes a phased array, 75 kHz acoustic Doppler current meter for installation on R/V Seward Johnson II, and a multi-corer device for collecting undisturbed seafloor samples from any of the three ships. These new capabilities will be of substantial advantage to marine scientists using the ships in their research during 2001 and future years.